Round Table on Africanisms in Afro-American Language Varieties to be held in Athens, at the University of GeorgiaOctober 29-31, 1987

This grant is for a conference on the foundations of Afro- American speech varieties (Black English, Gullah, and various Caribbean creole languages). A basic controversy in the field is the role, if any, of African substrate influence. Issues to be addressed by a distinguished gathering of creolists, Africanists, dialectologists, and other experts include: 1) How should the concept of "African substratum" be understood with respect to Afro-American speech varieties in light of recent developments in the field? 2) What are the conditions under which substrate influence is likely to occur? 3) What correlation is there between linguistic and cultural Africanisms? 4) What other problems are involved in demonstrating African substrate influence? Mufwene is a leading scholar of African languages, pidgin and creole studies, and linguistics, and the two dozen participants who have agreed to participate represent every point of view taken on the issue. The topic under discussion is not only of concern to scholars but also to people of African descent in North America and the Caribbean, since it deals directly with the extent and type of survival of African language and culture through the experience of dislocation and enslavement.